Spectroscopy of Molecular Complexes

In this project funded by the Experimental Physical Chemistry Program of the Chemistry Division, Klemperer will investigate the properties of relatively strong bound molecular complexes in their ground electronic state, but excited to high energies in the range between 10,000 and 15,000 cm-1. This work will provide quantitative data on the potential energy surfaces of hydrogen bonded molecular complexes. Studies will be performed on complexes formed with He and H2, the rotational spectroscopy of high-energy isomers will be carried out, and the spectroscopy of high overtones will be pursued.

This research will develop new areas of the spectroscopy of hydrogen bonded molecular complexes. Students and postdoctoral research associates will participate in this work. They will receive training in theoretical and experimental techniques of high resolution molecular spectroscopy in preparation for advanced studies or entry into the scientific/technological workforce.